Symplectic Varieties, Orbifolds and Contact Homology of Toric Manifolds

Abstract

Award: DMS-0603892
Principal Investigator: Eugene M. Lerman

Lerman proposes to carry out three interrelated projects on the
interface of geometry topology and category theory. The first
project aims to classify singular symplectic toric varieties.
This necessitates a development of a satisfactory set-up for such
spaces. The second project studies periodic orbits of
Hamiltonian systems on orbifolds and on symplectic stratified
spaces. The third project studies infinite dimensional Lie
2-groups arising as symmetries of orbifolds.

The projects contribute to the mathematics underpinning classical
mechanics, the science governing the motion of satellites and the
like. They also have links with important theoretical problems
of high energy physics, higher gauge theory in particular.